An International Workshop on Submerged Coral Drilling; St. Petersburg Beach, Florida; September 2000

This award provides partial support for "An International Workshop on Submerged Coral Drilling". The conference will (1) define and prioritize scientific objectives of submerged coral drilling, (2) identify site survey and technology requirements needed to optimize core recovery, (3) define sample handling, data management, and analytical protocols, and (4) identify groups of investigators that will focus their efforts on specific topics or areas. The workshop will be held in September, 2000, in St. Petersburg, FL, and will be co-funded by JOI, Inc., following review of a separate proposal to them.